Expedited Awards for Novel Research: Combustive Synthesis ofSolids Such as Titanium Carbide

The combustion of carbon/titanium powders has been demonstrated to be a feasible technique for synthesizing TiC. The primary advantages of the method are the reduction in energy requirements for the process (it is a self-sustaining exothermic reaction) and the high temperature (3500 K) attained in the product, providing a unique opportunity for manipulating the crystalline structure. Work in the past has been conducted primarily by material scientists; however there is much which can be offered to the field by the principal investigator who is a combustion scientist. The proposed research is novel in that analytical and experimental approaches developed in the more mature discipline of combustion are to be applied to the SHS (Self- propagating, High temperature Synthesis) process. Since combustion deals traditionally with pure gaseous or condensed phase plus gaseous reactants forming gaseous products, a good deal of work is required to generalize to the solid reactants going to solid products case. The ultimate goal is to develop a unified theory for all classes of combustion processes.